Spin-Oriented Studies of the Nucleon and Nuclear Systems

Research in hadronic and electromagnetic nuclear physics will be carried out. Most of the near term experimental effort will be directed towards LAMPF, Bates, and NIKHEF. Longer term CEBAF projects are under development. Polarization and other related techniques will be used to explore the quark substructure and fundamental form factors of the nucleon. Experiments will be sensitive to the strange quark content of the nucleon through pion nucleon phase- shifts, to the electric form factor of the neutron, and to the flavor-singlet proton charge form factor. Similar studies for neutrons will be carried out using few nucleon targets. The nuclear structure of few-body and selected complex nuclei will be carried out, the latter with oriented, polarized targets.